U.S.-Argentina Cooperative Research on Software ArchitectureFormal Specification

9514202 Wolf This U.S.-Argentina collaborative research project will continue the development of a framework for the formal specification and analysis of the behavioral properties of software architectures. Together with Daniel Yankelevich of the Universidad de Buenos Aires in Argentina, the PI at the University of Colorado Boulder will extend his work on a formal specification method based on the Chemical Abstract Machine (CHAM) model. CHAM provides operational semantics which may be more easily understood by a wide audience than competing mathematical formalisms. The collaboration established in this project connects the PI with an existing effort between Argentina and Italy on specification and verification of concurrent systems. It also combines the systems orientation of the U.S. group with the theoretical orientation of the Argentines to understand the potential of the CHAM model for software architecture. ***